Mathematical Sciences: Postdoctoral Research Fellowhip

The Mathematical Sciences Postdoctoral Research Fellowships are awards to recent recipients of doctoral degrees. The fellowship is designed to provide 24 months of support divided into 18 academic months and 3 periods of two summer months. The recipient has the option of a Research Instructorship which allows the 18 months of academic support to be taken as 9 months of full-time support and 18 months of half-time support. Mathematical Sciences Postdoctoral Research Fellowship awards allow fellows to choose research environments that will have maximal impact on their future scientific development. Dr. Andrew M. Winkler received his doctoral degree from New York University, and will pursue research in the area of numerical computation, theoretical work on the existence of cuspidal spectrum for non-congruence arithmetic discrete groups, and continuing work demonstrating the absence of such spectrum for non-arithmetic Hecke groups, under the guidance of Peter Sarnak at Stanford University.